Soliton Effects in Nonlinear Guided-Wave Optics

It has recently been shown theoretically that soliton-like waves can be guided by optical waveguiding structures containing at least one Kerr- type, self-focusing medium, and that under conditions of high excitation, spatial solitons can be emitted from such a nonlinear structure. This has led to the prediction of new soliton-based single waveguide devices such as optical limiters and all-optical switches, as well as new modes of coupling between isolated waveguides. This proposal concerns a combined program of theory and experiment, with theory leading the way, to establish the feasibility of observing and utilizing spatial-soliton-based nonlinear guided-wave phenomena in integrated optics. The investigators will initially: (a) extend their previous 2-D cw studies to full 3-D simulations; (b) incorporate more realistic material nonlinearities and assess their effects on these phenomena; (c) address the full 4-D spatio-temporal problem which is associated with pulsed inputs; and (d) search for new soliton-based devices for single and multiple waveguides. Based on these calculations and in parallel with them, experiments will be initiated to investigate both spatial and temporal soliton effects in nonlinear waveguiding structures.